A New Galaxy Redshift Survey at the Las Campanas Observatory

A redshift survey of galaxies will enable astronomers to infer the physical structure of our Universe out to large distances. The redshift of the light from galaxies depends on the distance to the galaxy. A new galaxy redshift survey of unprecedented size will be carried out. The galaxy sample will be selected photo-electrically using the scanning Charge-Coupled Device (CCD) camera at the Las Campanas 1-meter telescope in Chile. Redshifts for 20,000 galaxies will be obtained using multiple-object spectroscopy at the wide-field Cassegrain focus of the Las Campanas 2.5-meter telescope. The median galaxy redshift will be 18,000 kilometers per seconds. The survey will sample 800 square degrees distributed over an area of one steradian of the sky. The large volume of the survey will reveal features in the galaxy distribution at the largest practicable scales. The high sampling density of the survey will reveal in detail the nature of clusters and voids in the galaxy distribution within our Universe.